Human Paleontology Laboratory Instructional Equipment

This award provides funds to the anthropology department of Clevland State University (CSU) to purchase a representative set of key hominoid fossil primate teaching casts. The casts requested will be used to institute formal laboratory sections that will accompany an upper level undergraduate course in human paleontology. The casts will also be used for introductory courses, and human osteology courses. Students in the human paleontology course will be required to carry out a series of exercises that illustrate the quantitative and qualitative techniques which are used in analyses of (a) phylogenetic reconstruction, (b) identification of evolutionary trait complexes, (c) allometric size and scaling, and (d) functional morphology, In addition, students will be required to maintain a computer data base for weekly lab reports and their evaluations of various analytic techniques. The funds will (a) permit expansion of CSU undergraduate course offerings in physical anthropology, (b) provide anthropology majors, minors, and non-majors with an opportunity to directly confront fossil evidence of human evolution, (c) provide students with an opportunity to conduct, or initiate, analyses that directly involve fossil discoveries that have played a pivotal role in the development of human origins theories, and (d) encourage interest in graduate studies directed toward improving our understanding of human morphological and behavioral adaptations. The grantee institution is matching this NSF award with funds from non-Federal sources.